MRI: Development of a State-of-the-Art Laser Micro-machining and Surface Engineering System

The objective of this instrument development proposal is to build an integrated state-of-the-art laser micro-machining and surface engineering system (LSES). This instrument integrates a pico-second laser with the technology of numerical-controlled precision machining and high-speed and high-sensitivity instrumentation. The system will enable (i) rapid physical and chemical texturing of micron-sized features onto arbitrary three-dimensional object surfaces with sub-nanometer precision, (ii) direct visual and spectroscopic observation of the workpiece surface and the laser plume, (iii) temperature and strain measurements of the workpiece at high temporal and spatial resolution, and (iv) post-texturing surface measurement.

Successful development of the proposed LSES will open new opportunities for fundamental studies in understanding how surface (physical and chemical) texture of different length scales may affect friction, wear, lubrication and energy dissipation under different contact conditions. More importantly, surface texture has a major role in reducing energy consumption. Various initiatives are proposed to make this instrument available to other researchers, to encourage participation of woman and under-represented minority students, and to enhance education, training and technology transfer.